Numerical Analysis of Large Eddy Simulation

9972622

This proposal is to begin the mathematical development of large eddy simulation. Large eddy simulation (or LES) tries to predict the motion of the large structures in the turbulent flow of a fluid. LES has been highly developed by the engineering computational fluid dynamics community since its inception in 1970. The present proposal is to provide a mathematical and numerical analytic foundation for the field. In particular, it includes: modeling-derivation of improved space filtered flow models, asymptotics- improved boundary conditions for such models, analysis-rigorous analytical study of the modeling error, numerical analysis-derivation and validation of algorithms for space filtered models, direct simulation- a new approach to LES of direct simulation of large eddies, simulation- computational testing and benchmarking of the models and algorithms under study.

Understanding turbulent flow is central to many important problems including environmental and energy related applications (global change, mixing of fuel and oxidizer in engines and drag reduction), aerodynamics (maneuvering flight of jet aircraft) and biophysical applications (blood flow in the heart, especially the left ventricle). Turbulent flow is composed of coherent patches of swirling fluid called eddies. These range in size from large storm systems such as hurricanes to the little swirls of air shed from a butterfly's wings. Large Eddy Simulation (LES for short) seeks to predict the motion of the largest and most important eddies uncoupled from the small eddies. This uncoupling is important
because the large eddies are resolvable on a computational mesh (a collection of chunks of the physical problem) which can be handled by a supercomputer. The proposed research centers on modeling the large eddies (such as storm fronts, hurricanes and tornadoes in the atmosphere) in turbulent flow, predicting their motion in computational experiments and validating mathematically the large eddy models and algorithms developed. Current approaches to LES seem to be presently confronting some barriers to resolution, accuracy and predictability. It seems likely that many of these barriers can be traced to the mathematical foundation of the models used, the boundary conditions imposed and the algorithms employed for the simulations. The research undertaken is to develop these mathematical foundations as a guide for practical high performance computation. This research promises to make it possible to extend the range of accuracy and reliability of predictions important to applications, such as those described above, where technological progress requires confronting turbulence.